Microcomputer-Based Laboratory in General and Biopsychology

One of the major goals of this project is to enhance the science education of students enrolled in General Psychology through extensive experience with contemporary and methodologically rigorous research in the discipline. The Denison faculty is developing a microcomputer-based laboratory which will provide students with first-hand experience in using the methodological procedures necessary for conducting research in the major content domains of psychology. A second major goal is to enhance students' ability to comprehend human functioning from an integrated biological/behavioral perspective. The configuration of equipment modules (microcomputer, interface, and physiological instrumentation) enable sophisticated research for measuring cognitive and behavioral variables. The use of this equipment provides students with theoretical and methodological knowledge of human functioning from a bio-behavioral perspective. The Denison faculty is making a significant contribution to psychology education by returning to a vigorous experiment-centered freshman laboratory.